Postdoctoral Research Fellowship in Plant Biology

This is an individual award for the Postdoctoral Fellowship in Plant Biology. The applicant received his Ph.D. from the University of Wisconsin in molecular biology studying regulatory gene sequences in Agrobacterium. He plans to carry out his postdoctoral fellowship research in the laboratory of Dr. Tom Guilfoyle at University of Missouri. His research entitled "A functional study of the biochemical role of a family of small auxin-induced proteins" will broaden the applicant's scientific training into the mode of action of plant hormones in particular and plant physiology and biochemistry in general.